SBIR Phase II: Anthrax Detector for Mail Sorting Systems

0349687
Farquharson

This Small Business Innovation Research Phase II project will develop two prototype anthrax detector systems designed to screen mail entering a postal facility and/or to identify and to stop distribution of anthrax containing mail as it passes through a sorter. These systems will be able to detect 2 micrograms of spores captured from a letter containing as little as 100 micrograms, as well as similar concentrations on contaminated surfaces. The Phase I project demonstrated feasibility by successfully developing a vacuum/filter collection system that captured Bacillus cereus spores from an envelope passing through a mail sorter, which were detected by Raman spectroscopy. Some 23 micrograms of B. cereus spores were measured in 9 seconds using 1064 nm excitation, with an estimated limit of detection of 10 micrograms or 1 million spores in 10 seconds. The Phase II project will complete the design of the anthrax detector system, with improved sensitivity nd selectivity.

The broader impact of this project will be on the safety and security of mail handling and delivery across the United States.